Dimensions IRCN: Diversity and Forest Change: Characterizing functional, phylogenetic and genetic contributions to diversity gradients and dynamics in tree communities

This project will establish an international research coordination network that combines two existing forest networks in the United States with a set of forest plots in China, to advance understanding of how tree biodiversity determines the functional aspects of forests, and to test hypotheses concerning the resilience of forests to global change. Together these networks maintain 24 large-scale forest plots in tropical and temperate forests in Asia and the Americas, providing data on the demography, functional traits, phylogenetic relatedness and environmental preferences of thousands of tree species. Through a series of symposia, analytical workshops and international scientific exchanges, these data will be used to ask: what functional traits underlie species distributions across environmental gradients; how functional traits and phylogenetic relatedness of communities link to forest function; how functional traits and environmental tolerances vary among individuals within species; and how gene flow contributes to genetic diversity at local and regional scales. By combining long-term temperate and tropical forest studies across entire tree communities, this project will parameterize models that incorporate functional and genetic variation among species, to test predictions about current and future changes in forests. An ultimate goal is to develop detailed models of forest composition and its genetic and functional basis, to be simulated over a range of climatic predictions. This integration across multiple dimensions of biodiversity will enhance understanding of how forests are structured, a critical step towards predicting how forests will respond to global change.

This project will implement a series of capacity building and training initiatives to expand science and enhance collaboration between the United States and China. The strengthening of the network of forest research plots in Asia and the Americas will provide information crucial to determining the role of forests in a changing global environment. This project will engage numerous graduate students and early-career scientists in interdisciplinary training on taxonomic, functional and genetic dimensions of biodiversity and ecosystem processes. An exchange program will enable students and early-career researchers from the United States to spend 3 months in collaborating institutions in China. Chinese scientists will have similar opportunities in the United States through parallel funding provided by NSF-China. In addition, the scientific workshops will result in the development of new analytical tools and data compilations that will be made openly available through the web.